Creation of an Undergraduate Laboratory for Experiments in Image-Sequence Synthesis and Image-Sequence Processing

9451520 Lyon Image-sequence processing and image-sequence synthesis are the enabling technologies for multi-media, HDTV, desk-top video, interactive TV and computer animation. The objective of this proposal is to provide laboratory equipment for our developing image-sequence processing and image-sequence synthesis courses. These courses are closely aligned to the needs of industry and address recent results as well as topics of current research. This department believes that a knowledge of image-sequence processing and image-sequence synthesis technologies provides a competitive edge to students and industry. The image-sequence processing and image-sequence synthesis topics are dealt with in several experiments, structured around the material presented in our developing computer graphics and image processing courses. These experiments will give vital experience to our students, so that they may have a significant societal impact by transferring these technologies to industry in this and the next millennium.